Mathematical Sciences: Topics in Applied Asymptotic Analysis

9625341 Wimp This proposed program consists of several topics in applied asymptotic analysis. These topics by and large have not been systematically covered in the general books dealing with asymptotics, yet are of great significance in applied science and engineering. For instance, the central limit theorem is one of the keystones of probability theory, yet no readily available source on asymptotics has discussed its applications and ramifications. Certain problems in combinatorics, in particular, the theory of random walks, can be elucidated by asymptotic methods; yet these have received no unified treatment. Most books have an extensive treatment of differential equations, but difference equations, which are just as important, require their own methods of attack. Renewal equations, which arise in investigations in computer science and engineering, have been occasionally treated but have not yet received the attention they deserve. The topics to be investigated are motivated by these deficiencies: the drunkard's walk and convolution sequences; the stability and convergence of the solutions of non-linear difference equations; the application of probabilistic methods to problems in applied asymptotic analysis; error distribution in the numerical inversion of matrices; and renewal equations arising in the recovery of information in communications systems employing multiaccess channels. %%% Scientists are often interested in what happens "in the large." Examples of this abound in everyday life. For instance, if the number of users of the internet continues to grow in some well-defined fashion, what precisely will happen to the time required to log onto the system? What is the likelihood that a medication ingested into the human system will reach its target after an extended period of time? How are the populations of a given agricultural pest and the plants on which it feeds related over an extended period of time? Is the future growth in major criminal offenses in a city strongly dependent on the current rate of minor criminal offenses? Will the population of a country, given sufficient food supply, continue to grow at a disastrous rate, or are there self-limiting features of population growth that will prevent this from happening? The scientific mathematical language often used to model such situations is called the theory of difference equations. In this research program, we intend to develop new methods for attacking such equations, and hence to help resolve some practical issues which these equations describe. ***